Technical Instrument Laboratory

A multi-function technical laboratory is being developed that includes mechanical, hydraulic, pneumatic, and electronic instrumentation equipment that can be used as stand-alone devices for individual experiments as well as integrated with controllers, microprocessors, and personal computers for project team assignments. The major contribution of this project is the analysis and operation of control systems and the associated advantage of providing hands-on experience with equipment that provides an opportunity to apply many of the engineering principles learned in the classroom. This project is being matched by an amount greater than the award.